Mathematical Sciences: Diffusion, Cross-Diffusion and Spike Layers

9705639 Ni Professor Ni plans to continue his research in investigating various diffusion related mechanisms mathematically. A thorough understanding of those phenomena and effects of diffusions will enhance our ability in modelling more complicated or realistic situations in applied sciences. It seems that substantial progress has been made in the last ten years, and the stage is set for even more exciting mathematical breakthroughs, especially in diffusion related pattern formation. In this project, Professor Ni will study the following three closely related aspects: (I) Systems of semilinear diffusion equation (II) Systems of self-diffusion and cross-diffusion equations (III) Spike-layers (point condensation solutions) in diffusion/cross-diffusion systems. The purpose of this project is not only to separately develop these directions further, but to synthesize the results obtained and to build a theory to give a systematic point of view in understanding those "concentration" phenomena in differential equations. In an attempt to understand segregation phenomena in population dynamics, in 1979 several Japanese scientists at Kyoto University incorporated the notions of "self-diffusion" and "cross- diffusion" into the classical Lotka-Volterra model for the dynamics of two competing species. In a slightly broader context, these "bio-diffusions" could also be viewed as special cases of combinations of random diffusion and taxis (i.e. directed movements). Chemotaxis would be another such example. These have greatly enriched our diffusion-related models -- from the celebrated "diffusion-driven instability" of A. Turing in 1952 to recently discovered "diffusion-induced extinction" and "diffusion-induced blowup" -- and have therefore enhanced our ability in modelling those biological and physical phenomena. The research in this proposal would provide a first step toward the understanding, in a mathematically rigorous manner, of t he concentration/segregation effect of the various types of "bio-diffusions" (namely, random, repulsive, and attractive) as well as "taxis" (namely, positive and negative).